International Conference on Constitutive Laws for Engineering Materials: Theory and Application, and Short Course

An international conference on constitutive laws for engineering materials will be held. The primary emphasis of this meeting will be to lay the foundations for developing unified constitutive relationships for solids and geo-materials and specifically apply the new developments in theories of elasticity, hypoelasticity, plasticity, viscoplasticity, and endochronic concepts and model discontinuities such as contacts, interfaces, joints, and fractures. A short course will follow the meeting in which the international experts will deliver their views on an integrated approach for constitutive modeling of solid and geo-materials.